North Dakota Collaborative STEM Conference 2016

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This project at the University of North Dakota proposes to conduct a conference to bring together K-12 teachers of science and mathematics in North Dakota. The proposed innovative conference would collaboratively combine the annual meetings of three organizations in the state of North Dakota, all of whom have K-12 roles in the development of a STEM-literate workforce squarely in their focus. The three organizations are: North Dakota Science Teachers Association (NDSTA), North Dakota Math Council of Teachers of Mathematics (NDCTM), and the North Dakota STEM Network (NDSTEM). The program involves a statewide collaboration of higher education faculty and staff, state government and local community leaders, K-12 administrators and teachers, informal educators, and representatives of local STEM related business and industry.

The conference will involve the major STEM education networks in the state. The evaluation of the conference will be done by post-conference surveys that will capture the impact of it on the professional development of teachers and the awareness and knowledge of higher education, government, along with business and industry to positively interact and support math and science educators in preparing their students for the workforce of tomorrow.